Continuing the Development of a Rigorous Framework for Timelike Liouville Theory

The goal of this project is to construct a rigorous framework for timelike Liouville theory. Timelike Liouville theory is a theory of quantum gravity with a "wrong sign" in the exponent, which makes it impossible to put it in the setting of ordinary probability theory. Recent work by the PI has developed an extension of probability theory that accommodates Gaussian distributions with negative variance, and has applied it to construct a rigorous timelike Liouville theory in a restrictive regime of parameters known as the charge neutrality region. The aim of the forthcoming investigations is to go beyond this restrictive region and construct a complete theory. The project also provides research opportunities to graduate students.

While spacelike Liouville theory has received intense attention in the probability community over the last two decades, the timelike theory --- which is closer to a true theory of quantum gravity --- has remained beyond the reach of rigorous mathematics. Partial progress by the Principle Invesigator has laid the foundation for a rigorous theory of timelike Liouville field theory, and given a proof of the timelike DOZZ formula in a restricted regime of parameters known as the charge neutrality region. The proposed project aims to take this further by extending beyond the charge-neutrality region. Further investigations into the nature of 2D quantum gravity models and relating them to conventional random fields are to be undertaken.